Grant for Exploratory Research: Novel Methods for AttachingDNA to a Surface for STM and AFM Experiments

This research project in the Analytical and Surface Chemistry Program has been funded as a Small Grant for Exploratory Research. The research will develop two novel methods for attaching DNA and other biomolecules to substrates for their subsequent examination by scanning probe microscopy. Successful implementation of these attachment methods will allow the full power of scanning tunneling and atomic force microscopy to be applied to the structural characterization of biomolecules and other macromolecular systems. Such structural information is essential to understanding the mechanisms of biomolecule reactions and their relation to life processes. %%% The ability to anchor a large biomolecule to a substrate for microscopic examination will be developed in this research project. The interaction of scanning microscopy probes with the molecule under study has limited the applicability of these powerful methods for large molecules. This research project promises to address these limitations, resulting in a better understanding of the structure of these biologically important molecules.